500 MHz NMR Spectrometer

A group of four investigators in the Brown University Department of Molecular Pharmacology & Biotechnology (within the Division of Biology and Medicine), the Brown University Department of Chemistry, and the Department of Pharmacognosy and Environmental Health Sciences at the University of Rhode Island, is seeking funds for the purchase of a highfield (500 Mhz) NMR spectrometer for use in frontier biochemical and bio-organic investigations.